Doctoral Dissertation Research: Kinship, Economic Organization, and Ethnicity Among the Dolgan of Arctic Siberia

ABSTRACT OPP-9528936 Chagnon/Ziker This dissertation research project will test the proposition that Siberian peoples are becoming more integrated with the Russian and global market economy. Although microeconomic theory and ethnographic reports support this hypothesis for many regions, there is reason to question it for the Siberian north. Since the dissolution of the Soviet Union, native people across Siberia are instituting "family and clan" farms. They are replacing the State Farm economy and may represent greater autonomy on the part of native people. The project will generate both quantitative and qualitative data from household surveys, interviews and participant observation in the community of Ust Avan. These data will be used to analyze and compare family/clan farms with the State Farm system, modes of exchange, patterns of land and resource use and ethnicity.